hp-adaptive FOSLS Methods for Nonlinear PDE Problems with Singularities

This proposal is for development of an effective hp-adaptive First-Order
System Least-Squares (FOSLS) method for nonlinear partial differential
equations (PDEs) that may exhibit singularities and other non-smoothness
properties. The general FOSLS methodology is already a powerful tool for
the solution of PDE-based problems in science and engineering. One of its
main advantages is that it can be used to transform a given set of
equations into a loosely coupled system of scalar equations that can be
treated easily by multilevel finite elements. The reformulation is done
by recasting the equations as a least-squares principle associated
with a carefully derived first-order system. Another advantage of FOSLS is
that the associated functional itself provides a natural sharp local error
estimator, which can be employed for effective adaptive refinement. In
previous work, the FOSLS methodology was developed and analyzed for
problems that include linear elasticity, linear transport, and
incompressible fluid dynamics. Under standard H2-type smoothness
assumptions on the original PDE, FOSLS has been proved theoretically
and numerically to exhibit optimal finite element and multigrid
convergence properties. However, two principal difficulties currently
prevent FOSLS from being applied effectively to more complicated problems:
nonsmooth solutions and nonlinearity. The project aim is to develop an
adaptive weighted-functional coupled with adaptive nested iteration
schemes to treat these difficulties. The goal is to obtain a scheme that
can solve complex nonlinear PDE systems with a total cost equivalent to a
small number of relaxation steps on the finest grid.

Successful completion of this project will enhance our ability to model
complex physical processes on high-end computing platforms. In particular,
this project addresses computational models of coupled fluid/structure
interactions that occur, for example, in biomechanical systems such as
blood flow in compliant vessels. Other areas that could potentially
benefit from this project are aerodynamics, astrophysics, geophysics and
meteorology. As modern computer architectures become more complex,
harnessing 10s of thousands of processors working together on a single,
complex problem, it becomes even more important to develop optimal
numerical algorithms. Successful completion of this project will widen the
class of problems for which optimal algorithms exist.